Laboratory Enhancement for Undergraduate Education in Microscopy

The department is purchasing a scanning electron microscope, a critical-point dryer and sputter-coater for SEM preparation, and a research quality multi-functional light microscope equipped for brightfield, phase-contrast, epi-fluorescence and DIC optics and for photomicrography. This new equipment is being integrated with present equipment to 1. develop and upgrade hands-on courses in light and electron microscopy, 2. improve the existing laboratories in Developmental Biology, Cell Biology, Experimental Genetics, Recombinant DNA, Histology, and Immunology courses, and 3. provide new equipment for undergraduate research projects. It is expected that the experiences will enhance the students' ability to think critically, give them opportunities to design experiments using the modern instruments, and can stimulate students to go on to careers in science. The university will contribute an amount equal to the award.